Theoretical Studies of Equilibrium and Non-Equilibrium Multi-Layer Films

The PIs will carry out theoretical research on both equilibrium and dynamic properties of classical liquid and solid systems containing multilayer films. In the area of dynamics they propose (1) studies of the growth of absorbed films under both wetting and non-wetting conditions and (2) simulations to elucidate the effect of wetting on fluid flow in narrow channels. In the realm of equilibrium phenomena they propose studies of (1) surface melting, (2) wetting in the presence of structural phase transitions, and (3) film desorption produced by, e.g., surfactancts. Emphasis is on the use of lattice models, studied by Monte Carlo simulations, mean-field theories, and scaling analyses.